Enhancement of the Chemistry Curriculum by Fourier TransformInfrared Spectrophotometry

This project will improve significantly the chemistry laboratory curriculum by giving students relevant instruction and hands-on experience with a modern state-of-the-art Fourier transform infrared spectrophotometer (FT-IR). Also students will have a first-hand opportunity to use computer-controlled data manipulation and collection techniques. The project will allow students to investigate, identify, and characterize the structures of unknown compounds and compounds which they synthesize. The computer and associated software will permit students to control the instrument and select methods of data collection, storage, search, and manipulation. The project will be implemented by expansion of current experiments and development and/or incorporation of new experiments. The FT-IR will be used in Organic Chemistry Laboratory, Techniques of Dynamics, Chemical Instrumentation, Inorganic Synthesis and Characterization, Instrumental Analysis, and Senior Research Experience. Enhancement of student laboratory experience through the operation of a computer-controlled FT-IR will provide students with a better, more relevant preparation for continued study in graduate school and for careers in industrial laboratories.